Third U.S.-Pakistan Binational Workshop on Advances in Natural Products Chemistry, Karachi, Pakistan, January 1988

Objectives and Relevancy: This action provides support for participation of U.S. scientists in the third U.S.-Pakistan Binational Workshop on Advances in Natural Products Chemistry. The Pakistani organizer of the workshop is Dr. Atta-Ur-Rahman, codirector of the HEJ Postgraduate Institute of Chemistry at the University of Karachi. The meeting will build on the accomplishments of the previous workshops held in 1984 and 1986, including the significant interaction between scientists of the two countries, and the internationally published proceedings. Specific topics to be discussed include physiologically active compounds from Pakistani natural sources and traditional medicinal preparations, new methods of isolation and separation of secondary metabolites and their natural functional role in pakistani plants, advances in the methodology of structure determination, and synthons for new medicinal agents from Pakistani natural products. The U.S.-Pakistan program supports workshops between scientists of the two countries in areas where there is active research in both countries and when collaboration can be enhanced. The project meets these criteria. Merit: The U.S. P.I. is a well regarded scientist in his field, and the Pakistani organizer of the workshop is internationally known and respected for his extensive research accomplishments. The meeting is likely to bring together the best of Pakistan's scientists in natural product chemistry and many active scientists from the U.S., as well as some experts from Europe. It is expected that the proceedings will be published worldwide and contribute to the dissemination of new knowledge in this field. Funding: In addition to this action, the workshop is expected to receive financial support from the Governments of Pakistan and of the Federal Republic of Germany.